CyberAI Innovation: AI-Enhanced Cyber Data Analytics Education

The United States faces a severe shortage of professionals who can both apply artificial intelligence (AI) to defend digital systems and secure AI systems themselves—a gap that threatens national security, economic competitiveness, and critical services. This project extends combined AI and cybersecurity education well beyond traditional computer science pathways. Based at the University of Hawaiʻi Maui College, a federally designated Center of Academic Excellence in Cyber Defense, it serves community college and high school students, as well as working educators across the Hawaiian Islands. By translating cybersecurity into the working vocabulary of nursing, automotive technology, and accounting, the project prepares future professionals in those fields to recognize and respond to the AI-related risks they will encounter at work. Open educational resources, a faculty institute, and a high school pathway broaden these benefits nationally and sustain them beyond the award period.

The project advances the second goal of the CyberAICorps Scholarship for Service (CyberAI SFS) Innovation Track—enhancing national capacity for AI and cybersecurity education—through four integrated innovations. First, it will develop six open-access, AI-enhanced modules layered onto an existing Cyber Data Analytics Certificate, spanning adversarial machine learning, AI-driven threat detection, and the security of AI pipelines, with laboratories built on curated benchmark datasets and aligned to the Department of Defense Cyber Workforce Framework roles. Second, an annual Summer Institute will co-train community college faculty and secondary CTE teachers. Third, a dual-credit pathway will deliver AI-enhanced cybersecurity courses to eight high schools. Fourth, nine discipline-embedded micro-modules will integrate CyberAI competencies into non-information-technology programs through inter-disciplinary collaboration. A mixed-methods evaluation employing the Context-Input-Process-Product model and the validated Security Behavior Intentions Scale will address all six program success measures. Project outcomes—curricula, a replication toolkit, and peer-reviewed findings—will be disseminated through national open-education repositories, conferences, and events.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.